Reliable Gasoline Engine Knock Detection System

Engine knock is a long-standing automotive problem. This research is aimed at developing a reliable system for real-time detection of the presence of engine knock and the estimation of its severity. The system, if successful, would have immediate application in the entire automotive industry and in gasoline engines in general.